Molecular Studies of NMDA Receptors in Olfactory Neurons

This proposal is directed to the study of presynaptic NMDA-type glutamate receptors that are likely to be involved in the autoregulation of synaptic transmitter release. NMDA receptors are widely distributed in the central nervous system of all animals and are intimately involved in normal neural processes such as learning and memory as well as a number of pathological processes. Little is known of the presynaptic receptor function or structure since there has not been an available source of receptors that are not contaminated by the presence of the postsynaptic receptors in mixed and complex neural tissues. Because the olfactory epithelium is composed of a pure population of neuronal cells and that it is a presynaptic element the epithelium neurons can be a unique source of the genetic message and receptor proteins that can be used to generate the molecular tools to study presynaptic structure and function of the various neurotransmitter and modulator receptors that may exist there.